Automated Guided Vehicle for the Automated Manufacturing Laboratory

An automated guided vehicle system (AGVS) is being installed in the automated manufacturing laboratory. The AGVS is an advanced materials handling system that can transport materials, parts or products, via a defined pathway, automatically in response to programmed commands. It is being integrated into course demonstrations, student projects and laboratory exercises to give students hands-on experience in programming and setting up state-of-the-art automated equipment of the type used in industry.